RUI: Ultracold atomic and molecular collisions

Theoretical research into the the detailed dynamics of ultracold atom-atom and atom-molecule interactions are studied using quantum chemistry techniques to generate the required potential energy surfaces and close-coupling and algebraic variational methods for the dynamics. There are strong links to ongoing experiments and there is a high priority placed on undergraduate training in atomic and molecular theory.